Multimedia Courseware on Computing and Human Values

This pilot project will develop and test one interactive multimedia courseware module on social, ethical, and professional issues that arise from computing technology, and develop detailed plans for two other modules. The first module will highlight the history of computer ethics, consider how the meaning of the term has changed over the last two decades and compare this field with other branches of applied ethics, explore important concepts such as privacy and responsibility, and include scenarios that add interest and reality to the concepts. The two planned stacks will focus on issues of professional responsibility, and issues of access and equity for persons with disabilities. Multimedia "HyperCard stacks" combine video clips, sound bites, graphics and text. The first stack will be tested by classroom teachers and by students in interactive independent study. It will be disseminated at cost to universities and scholars that request it; and demonstrations will be presented at national conferences and workshops. The stack will serve as a prototype for high quality, cost effective, state-of-the-art curriculum materials on computing and human values.